Molecular Evolution of Aerobic Energy in Primates: The Cytochrome bc1 Complex

Adaptive changes in oxidative energy metabolism may be a key
process in the origins of humankind. Subunits of cytochrome c
oxidase, the terminal enzyme complex in the electron transport chain,
and cytochrome c, the electron carrier between cytochrome bc1 and
cytochrome oxidase, were previously shown to have both undergone
periods of rapid amino acid substitutions in primates. These studies
will now be extended to cytochrome bc1, an 11-subunit complex. Two
problems will be addressed whose solutions will help provide insights
into the evolution and function of cytochrome bc1 and its potential
role in anthropoid primates: (1) Cytochrome bc1 subunit genes and
also cytochrome c will be examined to determine whether the encoded
proteins underwent bursts of rapid amino acid substitutions in
lineages leading to the anthropoid primates. (2) Positively selected
changes in primates will be tested as to whether they take place not
only via amino acid coding region changes but also via regulatory
changes in the elements that control expression of the genes. This
work will characterize some of the important genetic changes that
allowed the emergence of the large-brained primates.